Planning Meeting to Form an Industry/University Cooperative Research Center for Ergonomics

9320137 Congleton Increased worker productivity and safety are directly related to ergonomics. An Industry/University Cooperative Research Center for Ergonomics can study the systematic and rational means to fit the work to the person. The primary goal of the proposed Center's research would be to improve work performance and safety through the study and development of general principles that govern the interaction of humans and their working environment. This action funds Texas A&M University to hold a planning meeting with potential industry members to determine a possible research agenda for the Center and its potential for support as an Industry/University Cooperative Research Center. The Co-Principal Investigators are nationally recognized researchers in ergonomics and have the facilities to conduct a planning meeting. The Program Manager recommends that Texas A&M University be awarded $10,000 for one year for this project.